Engineering Research Equipment: Ion Chromatograph

An ion chromatograph is to be purchased with this Research Equipment Grant to support three different projects in the Chemistry and Chemical Engineering Departments. The purpose of the first project is to identify and quantify the metal species that exist as a result of thermal degradation of hazardous waste. In the second, high performance ion chromatography will be investigated as an analytical tool for characterizing cyanide bearing waste. A third application is to the evaluation of the concentration and speciation of metals and other substances such as cyanide in the tailings at abandoned mining sites, and to assess the leachability of hazardous chemicals from the site. Heavy metals such as leaf, mercury and arsenic pose a serious hazard to human health if they become concentrated in drinking water or the food chain. An ion chromatograph has the ability to separate mixtures of cations and anions, free and complexed, providing a way to characterize the chemical state, and thus the desirability, of specific heavy metals present in a waste stream.